Ab Initio High Resolution Spectroscopy and Atmospheric Chemistry

In this Faculty Early Career Development Award funded by the Theoretical and Computational Chemistry Program at NSF, Kirk Peterson at the Chemistry Department of Washington State University will study gas phase processes that involve halogenated molecules which are found in the upper atmosphere. The focus of the work is on reactive species which contain chlorine and, in particular, bromine atoms. Highly accurate ab initio electronic wavefunctions and energies are to be used to characterize the thermodynamics, spectroscopy, and photochemistry of these molecules. The wavefunctions are computed using coupled cluster theory and multireference configuration interaction methods. Since the discovery of the seasonal drop in Antarctic ozone levels, accurate ab initio theoretical work has contributed to the understanding of the atmospheric chemistry relevant to ozone depletion. However, nearly all this work has focused on fluorine and chlorine compounds and bromine compounds have been neglected. Yet, stratospheric bromine chemistry is important because bromine species may account for 25% or more of the Arctic and Antarctic ozone loss. Further, the concentration of bromine molecules is expected to increase in the future. The work being supported by this award is leading to a better understanding of these important bromine reactions, a necessary precursor for their control.